WORKSHOP: UINTAS 2006--The Uinta Interdisciplinary Assessment Symposium

WORKSHOP: UINTAS 2006"The Uinta Interdisciplinary Assessment Symposium
This proposal seeks funding for partial support of a conference focused on Earth system science in
the Uinta Mountains of northeastern Utah. The Uinta Mountains are a fascinating natural laboratory
for the study of Quaternary climate changes, landscape evolution, and geoecology. The mountain
range contains a federally designated wilderness area spanning nearly half a million acres, and is
administered by three different National Forests. Over the past decade, numerous academic
researchers have forged innovative collaborations with land managers working on these National
Forests, which have greatly improved our understanding of previously overlooked aspects of the
Uinta land system. This work began in the mid-1990s with a dedicated program of geomorphic
mapping that formed the basis of a Forest Service land systems inventory. From that starting point,
research has expanded in a multitude of directions, encompassing topics as diverse as Quaternary
geochronology, periglacial landscape evolution, paleolimnology, post-glacial climate changes,
treeline fluctuations, fluvial geomorphology, and forest ecology. The addition of new researchers
and the establishment of new research programs have been particularly rapid over the past five years,
with the result that more than a dozen academic scientists are actively pursuing funded research in
the range, including two multi-year projects supported by the National Science Foundation. The
results of this work have been presented in more than 10 peer-reviewed papers, and have
considerable relevance to ongoing studies elsewhere in the central Rocky Mountains.
Intellectual Merit: The vibrant nature and breadth of current research in the Uintas is exciting and
presents considerable potential for interdisciplinary collaboration. However, the large number of
researchers focused on so many varied topics is inhibiting the efficient communication of research
goals and results necessary for the development of future collaborations. This is not the fault of any
individual research group, but rather the inevitable outcome of an increasingly specialized scientific
community in which researchers with different interests attend different meetings and follow
different literature. As a result, the great potential for innovative interdisciplinary research in the
Uintas will remain unrealized until these artificial barriers between disciplines are overcome and
robust connections can be made between research groups with complementary interests.
The weekend conference described in this proposal, UINTAS 2006"The Uinta Interdisciplinary
Assessment Symposium, will address this situation by greatly enhancing communication between
the academic research groups currently active in the Uintas. Through presentation of research
overviews and results, and focused planning sessions, a foundation will be constructed for the next
generation of innovative, interdisciplinary, projects. The conference will also highlight ways to
better connect academic research with the needs of land managers to ensure that the history of
fruitful collaboration between academe and the Forest Service will be maintained.
Broader Impacts: The concept for this conference has met with great enthusiasm from the research
community currently active in the Uintas, and from the U.S. Forest Service, which is providing the
majority of the funding. Forest Service land managers are particularly excited about the potential for
this conference to become a model for how government land management agencies may better
coordinate their needs with the interests of academic researchers. As such, this conference has great
potential for impacts beyond the community of researchers currently focused on the Uintas.
Furthermore, it is expected that approximately 16 presentations will be made on aspects of Earth
system science in the Uintas at the conference. These presentations will be collected and published
as a special issue of the journal Arctic, Antarctic, and Alpine Research, ensuring that the conference
presentations, and the results obtained to date by the different research groups, will be readily
available to the broader scientific community.